Organization of the 1994 Ultrafast Phenomena Topical Meeting; Dana Point, California

9414066 D. Hennage Support for students and postdocs to attend the 1994 Ultrafast Phenomena Topical Meeting is provided.